Glucocorticoid Receptor: Structure, Expression, and Signal Transduction

Glucocorticoid receptors transduce hormonal signalling information into specific alterations in gene transcription. We have cloned the rat glucocorticoid receptor coding sequences and characterized its functional domains. Here we propose: (1) to clone genomic receptor sequences for wild type and mutant receptor genes, characterizing the receptor promoter and its expression and regulation, and attempting to relate receptor gene organization to its evolution and function; (2) to pursue the mechanism of signal transduction, characterizing in particular the DNA binding and nuclear localization activities of the receptor, and selecting mutants in the overall process of transduction; and (3) to produce and purify preparative amounts of intact receptor and receptor fragments for biochemical and macromolecular structural analyses of the receptor, receptor- hormone and receptor-DNA complexes. These studies will broaden our understanding of the mechanisms of signal transduction and transcriptional regulation.